EC/US Joint Consortia for Cooperation in Higher Education and Vocational Education

This award to the Department of Education extends a partnership between the two agencies in cooperation with the European Commission. The US partnership will support two US consortia that will work with two corresponding European consortia to foster student exchanges. Support of this proposal will allow 30 students from six US institutions to work at eight participating European universities supported by the European Commission. One consortium, the International Operations Consortium, is headed by Mark McKnew, Clemson University, and Joao Lisboa, at the University of Coimbra in Portugal. It is designed to integrate traditional business and industrial engineering disciplines through new educational programs and multi-lingual materials for global distribution on the World-Wide Web. The second consortium, for Distributed Geographic Information Education, is headed by John Wilson, University of Southern California, and Josef Strobl at the University of Salzburg in Austria. The participating institutions will cooperate in developing a multi-disciplinary geographic information science curriculum, teaching units, and laboratory exercises as part of an on-line media resource.